Nickel Base Complex Nanophase Materials

This research effort involves synthesis, processing and characterization of nickel-base nanophase alloys, including pure Ni, Ni-base alloys, Ni with dispersed oxides, Ni/Al intermetallic compounds, NiO, and Ni/NiO composites. An ultrahigh vacuum synthesis system is used for production of metallic, intermetallic and oxide dispersion-strengthened precursor powder particles under controlled conditions. A second system is used for the NiO and Ni/NiO composites. Compaction and densification are effected without exposing the specimens to ambient conditions. The emphasis is on synthesis and processing and characterization of microstructure. Property measurements are used for guidance in the control of processing variables. %%% This research is aimed at new and improved metal-based materials using unique processing techniques. It is expected that such materials could see use in devices where high mechanical performance is essential.